Reimbursable Detail to the Position of Program Director, Solid State Chemistry Program

Dr. Kenneth J. Wynne will be on reimbursable detail from the Naval Research Laboratory from November 1, 1987 to October 31, 1988. He will serve as Program Director, Solid State Chemistry Program in the Condensed Matter Sciences Section of the Division of Materials Research.